Doubly Differential Cross Sections of Secondary Electrons Ejected from Atomic Hydrogen by Electron Impact (Physics)

It is proposed to measure absolute doubly differential cross sections for secondary electrons ejected from atomic hydrogen by electron impact (threshold 2 KeV). A modulated crossed-beammethod will be used, and the atomic hydrogen beam will be provided by a microwave discharge technique. The energy and angular range of the measured secondary electrons will be from 1.0 eV to near the incident energy and from 6 to 160 degrees, respectively. A particular emphasis will be on the measurements in the low energy range for both incident and secondary electrons. This research program will enable a crucial test of the collision theory and three body continuum problem because the wave functions of atomic hydrogen are known.